Research Experiences for Undergraduates in Physics

This grant will support the continuation of a Research Experiences for Undergraduates Site in the Department of Physics at Lehigh University. Students will participate in a number of on-going research projects in the Department. The program includes research, weekly seminars and lab tours, an end-of-the-summer symposium, and various faculty/graduate student/undergraduate student activities.